MIDGEPEET: A Collaborative Effort to Increase Taxonomic Expertise in Understudied Families of Nematocerous Diptera

Diptera, or true flies, are among Earth's most species-rich groups of organisms. Biting and nonbiting midges make up over 10% of the species, with a disproportionate number that are economically and medically important, including those that feed on blood, transmit disease agents, and facilitate aquatic nutrient cycling. Research will focus on net-winged midges, nonbiting midges, meniscus midges, sand/moth flies, black flies, and solitary midges; all are taxonomically challenging, understudied, and insufficiently staffed with expertise. The project will provide new information on biodiversity and ecology of these flies and a phylogenetic framework for natural classification and testing of biological hypotheses. New species will be described, identification keys prepared, and phylogenetic analyses conducted using morphological, molecular, and cytological data.

The project team will educate the next generation of taxonomic experts through a synergistic process involving workshops and integrated methodologies and collaborations. The work will involve applications of modern technology, including internet-accessible electronic publications and identification keys, digital image galleries of specimens, digital reproductions of taxonomic literature, electronic species distribution maps, nomenclatural databases, and interactive databases of GIS-compatible specimen data. Museum collections will be augmented with material from fieldwork. Long-term benefits will include infusion of taxonomic and biodiversity expertise into the scientific community.